UTMB's Summer Research Program for High School Students and Teachers

9353069 Houston The University of Texas Medical Branch seeks to initiate an eight- week, commuter and residential, Young Scholars project in biochemistry and life science for 20 students entering grades 11 and 12. The project also includes a Mathematics and Science Teaching Perspectives (MSTP) component for 4 teachers. The participants will be involved in a research experience under the guidance of university scientists. Other activities include classroom lectures and discussions, field trips, seminars, and laboratory activities. The goal of the project is to provide a stimulating "hands-on" experience in scientific research for disadvantaged students and their teachers.